Eigenvalues, geometry and instability in conservative models in applied mathematics.

Most of the equations derived to model physical phenomena support some form
of special solutions such as standing or traveling waves, or other coherent
structures. These special solutions often correspond to real, observable
physical phenomena in the systems that these model equations are meant to
represent. One important aspect of this modeling is the stability of these
special solutions, as the stability of solutions determines if these
solutions are likely to be physically observed. This project is aimed at
understanding the stability and instability these coherent structures.
This usually amounts to computing the index of the operator found by
linearizing about one of these coherent structures - that is the number of
eigenvalues of positive real part. This counts the dimension of the
unstable manifold to the solution, giving valuable information on the
dynamics of nearby solutions. While the emphasis of this project is on
conservative systems we consider both conservative and dissipative systems.
We use analytical, asymptotic and geometric techniques to identify unstable
eigenvalues and to count the number of such eigenvalues.

There are many mathematical models that are important for science and
engineering that support solutions in the form of traveling waves. One
example is an equation known as the Korteweg-DeVries equation, an equation
which governs the behavior of water in a narrow shallow body such as a
canal. The Korteweg-DeVries equation has solutions called solitary waves
which behave just as experience would suggest - they correspond to a
quantity of water which propagates along without changing shape. Similar
equations govern the propagation of light waves, propagation of a
disturbance through a network such as the power grid, etc. It is
important to understand the extent to which these solutions accurately
model the behavior of the underlying system. This is the question of
stability, which measures how robust these special solutions are. If a
special solution like a traveling wave is stable it means that nearby
solutions behave in a similar way. This means such solutions are robust,
and are likely to be observed: if the conditions are not exactly those
necessary to produce a traveling wave but are close we expect to see a
solution which is close to the special one. An unstable solution, on the
other hand, is not robust. In order to observe these unstable solution
one must produce exactly the right conditions, which is very difficult
to achieve in practice. This means that such solutions are more of
mathematical interest than of physical importance. This project is
primarily concerned with developing mathematical techniques to understand
the stability of traveling waves in a number of models including the
Kuramoto model (a model for the behavior of power networks) and several
nonlinear dispersive equations (which govern light waves in nonlinear
media, water waves, waves in plasmas and many other phenomena).